Galactic Center Workshop 2002: The Central 300 Parsecs

AST 0226493
Cotera

The "Galactic Center Workshop 2002: The Central 300 Parsecs" will be held November 4-8, 2002, in Kailua-Kona, Hawaii. This award will be used to subsidize the conference fee for 20 graduate students and postdoctoral researchers, in order to allow these young and important community members the opportunity to attend an interesting and informative workshop.
***